Indicators of Technological Competitiveness

This project aims to develop a set of composite indicators of international technological competitiveness. Preliminary indicators have already been developed in a just-completed project by Viking Instruments and Georgia Tech. These are based on data from available statistical data sets and new data derived from expert opinion. The data cover 20 countries through 1985. Validity of the indicators and their utility for policy purposes appear promising based on initial analysis. The current project extends this work by: (1) augumenting the data from statistical series and expert surveys; (2) conducting sensitivity analyses on indicators developed; (3) analyzing the validity of the indicators by several methods, including comparing the indicators against the several underly- ing dimnesions of competitiveness and comparing the ranking of countries on each new indicator against similar rankings using existing indicators; and (4) performing reliability tests on data sets by tracing them back to their sources and on opinion data by resurvey of respondents and analysis of interrespondent reliability. The anticipated result is a set of practical indicators of technological comptetitiveness suitable for inclusion in subsequent editions of Science & Engineering Indicators.